5 Axis CNC Machine Center in Support of Rapid Prototyping and Unmanned Manufacturing

This research involves automating toolpath generation using techniques from expert systems and computer geometry. The goal is to generate CNC codes directly from abstract geometric models. Expert systems will be used in conjunction with spline-based geometric models. The geometric models will model "standard" geometries while the expert systems will model "features" common to manufactured goods,( e.g., counterbored holes). These models will then generate CNC codes that can be run on a numerically controlled machine center. The goal of this research is to develop a fully automated rapid prototyping capability for manufacturing systems. An advantage that European and Japanese manufacturers have over the United States is the ability to rapidly modify products to meet new user demands. This research is an effort to improve the rapid prototyping of manufacturing goods. The research also will lead to improved quality control procedures and batch manufacturing capabilities. The research request is for the acquisition of a device for manufacturing goods. The machine center will be driven by numeric codes automatically generated from a combination of a mathematical representation and an expert system representation of the object to be manufactured. This capability will be unique in U. S. universities.